The Fourth IMACS International Conference on Nonlinear Evolution Equations and Wave Phenomena: Computation and Theory; April 11-14, 2005; Athens, GA

The Fourth IMACS International Conference on Nonlinear Evolution
Equations and Wave Phenomena: Computation and Theory
April 11-14, 2005
University of Georgia
Athens, GA 30602, USA

ABSTRACT

Partial Support is requested for `The Fourth IMACS International Conference
on Nonlinear Evolution Equations and Wave Phenomena: Computation and Theory'
to be held at the University of Georgia (April 11- 14, 2005) and sponsored by
IMACS (International Association for Mathematics and Computers in Simulation).
Presentations will be both invited (about 4) and submitted (about 120), and
attendance is estimated to be 150 or so. The requested support is for the
expenses of the four invited speakers, students, recent doctoral recipients,
and some of the direct costs of operating the conference.

The proposed conference will focus on computational and theoretical
aspects of nonlinear waves and optical fiber communication systems.
Nonlinear wave equations describe a wide class of physical phenomena in
plasma physics, anharmonic crystals, bubble-liquid mixtures, fiber optics, etc.
It is to be noted that fiber optics communications has experienced tremendous
growth in the last twenty years. In the last decade alone, data rates have
increased by orders of magnitude. At the same time, the recent rise of the
Internet and the World-Wide Web has quickly contributed to make this area one
of the key technological sectors in the national and global economy, and has
generated an unprecedented demand for even higher transmission capacities.
At the conference, researchers will present recent research in the broad area
that include theory and computations of solitons.
In addition, research will be presented that uses high performance computers
for solving computationally intensive problems.
This conference will build on the success of the previous year's conference.
In 2003, at the third conference in this series, more than 135 research papers
were presented. This includes contributed papers and papers presented in
organized sessions. In addition, a tutorial on `Introduction to Optical Fiber
Communication Systems' was given. Six invited speakers, ten students and
1 post-doc were fully or partially supported by the grant. Three `best paper'
awards were give to graduate students. More than 13 students and post-docs as
well as 11 women have participated in the conference. A good number of
scientists from the Naval research laboratories as well as the Los Alamos
National laboratories were present. We expect an even greater representation
of women at the fourth conference, and we are working hard to increase the
representation of minorities and persons with disabilities.
This conference is expected to have a substantial impact on the quality of the
research and teaching in the major areas of discourse which is due to its
interdisciplinary nature as well as to the high quality of the invited
speakers and participants. Participants from Mathematics, Physics, Chemistry,
Computer Science, Engineering and Industry were present at the previous
conferences.